National Expansion of Summer Industrial Internships for Teachers

This a two year program which will develop 12 summer industrial fellowship programs for high school teachers. Sponsored by the Triangle Coalition for Science and Technology Education it is based upon a similar successful program operated by the Industry Initiatives for Science and Math Education (IISME) in the San Francisco Bay area. A similar program was started in the Detroit area as a pilot project and has proven to be successful. The intent of this proposal is to disseminate the program on a national scale. The funding will support workshops at 12 proposed sites throughout the country, 8 of which are at NASA facilities. Consultants from IISME will help to plan the local fellowship program and will train educational coordinators for each site so that the fellowship experience can be translated into classroom contributions. The result will be that 240 science teachers will be placed as industrial interns and will have direct hands-on experience with science based technology. The interns upon returning to the classroom will have up-to-date information to teach students in the schools. The NSF share of this project is $159,490. It will be matched by contributions from the industries where the interns will be placed. This match will amount to $329,100, more than double the funds provided by NSF.